Engineering Research Equipment: Computer System for Analysis of Human-Clothing Thermal Interaction

Equipment is being obtained for research on thermal interaction of the human body, clothing, and the environment. The equipment includes a computer control system for a thermal manikin used in measuring the thermal properties of clothings.